ES Postdoctoral Associate: A Multistrategy Constructive Induction: A Method and Experiments

This award is for a postdoctoral associate in Experimental Science. The associate, Janusz Wnek, will be working on multistrategy, constructive, inductive inference.